Testing the Validity of Lake Sediment Chronologies Derived from Distributions of 210Pb and 137Cs

Problems have been identified with methods for reconstructing histories of lake acidification, water quality, pollution, climate, land use, etc., based on lake sediment records. A study of 12 Canadian Shield lakes in northwestern Ontario (Experimental Lakes Area) showed that the flocculent, organic-rich sediments in each of these lakes had been mixed to depths in some cases >50 cm. Organisms capable of mixing sediments to these depths do not occur in these lakes. Whether this deep mixing resulted from natural physical processes or from a sampling artifact could not be determined. However, the important point is that this mixing was not evident in 210Pb profiles measured in these lakes. Without additional information provided by 137Cs and radionuclides added experimentally to 4 of these lakes, erroneously high sedimentation rates would have been calculated from 210Pb profiles. Consequently, ages assigned to "events" recorded in sediments of these lakes would also have been in error. Several of the previously studied lakes have been resampled using a relatively new in situ freezing technique that precluded sediment disturbance during sampling. These sediments will e analyzed for 210Pb, 137Cs, and two radionuclides (60Co and 226Ra) added experimentally to certain lakes to determine the source of the mixing noted in out earlier work. In addition, sediment profiles of 210Pb and 137Cs will be measured in annually varved lakes to evaluate the extent of downward migration of these nuclides by diffusion in pore waters. The reliability of traditional gravity corers for collecting undisturbed sediment records will also be assessed. The outcome of this project will be important to all scientist working with the records inherent to lake sediments. The institutional setting for the work is excellent as is the record of accomplishment for the investigator. A recommendation for funding is fully justified.